Research at CESR using the CLEO II Detector

This grant covers experimental Elementary Particle Physics research by a group at the University of Kansas in collaboration with other NSF and DOE supported scientists. The group conducts research at CESR, the Cornell electron- positron colliding beam accelerator, studying electron- positron interactions with the CLEO II detector. They will study bottom quarks and tau leptons, the heaviest fundamental particles yet discovered. The properties of the third family of quarks and leptons in the Standard Model of elementary particles are almost entirely determined by the work of the CLEO group at Cornell.